Collaborative Research: Advancing Effective and Efficient Problem Solving through Data-Driven Technologies for STEM Learning

This project aims to serve the national interest by preparing students for future learning and for a world increasingly shaped by human–AI collaboration. It plans to build a data-driven framework for promoting effective and efficient learning in STEM education. The project aims to directly support NSF’s mission to promote the progress of science, by promoting discovery about human learning and artificial intelligence, translating research into STEM learning environments, and developing the STEM workforce by enabling students to solve complex problems with data-driven and AI-supported technologies. This Level 3 Engaging Student Learning project plans to transform how students interact with intelligent systems, integrating research-based techniques for active, constructive, and interactive engagement in AI-supported problem-solving environments. The project will contribute significant theoretical and practical advances, enhancing our understanding of how data-driven and learning science can support student learning. It will transform STEM learning environments, by providing a scalable, low-cost way to make effective individualized instruction in complex domains accessible to a broad audience, enabling the reshaping of the future of the US workforce.

Across three foundational STEM domains: logic, probability, and programming, the project aims to advance new approaches for generating personalized instructional interventions, mixed-initiative pedagogical policies, and interpretable explanatory support. It is grounded in the goal of improving learning outcomes, increasing efficiency, and fostering trust between humans and AI in educational technologies. Our research advances data-driven technologies for generating innovative instructional activities and natural language supports that optimize problem-solving and promote critical thinking. Built on the project team’s deep expertise in educational data mining and advanced machine learning, it will generate adaptive instructional interventions and support mixed-initiative human-AI collaborative decision-making. All the innovations and data-driven frameworks will be empirically evaluated in authentic classroom settings. The NSF IUSE: EDU Program supports research and development projects to improve the effectiveness of STEM education for all students. Through the Engaged Student Learning track, the program supports the creation, exploration, and implementation of promising practices and tools.